Femtosecond Optical Encoding for High-Speed Fiber Communications: Technology and Systems Studies

9626967 Weiner This project aims at experimental tests of novel ultrashort pulse code-division, multiple-access (CDMA) fiber communications systems. These systems are enabled by a femtosecond optical encoding and decoding technology, which uses a passive parallel modulation scheme to achieve Terabit/sec effective serial modulation rates. Multiple users are accommodated in such a system by assigning different, minimally interfering optical code sequences to different subscriber pairs. A unique attribute of optical CDMA is the use of optical processing, which can circumvent electronics bottlenecks and which potentially can implement directly in the optical domain certain network operations, such as addressing and security, which traditionally have been performed electronically. The impact of the CDMA approach is likely to focus on high performance applications such as supercomputer interconnects, over relatively short distances. ***